Collaborative Research: Development of a Power and Communication System for Remote Autonomous GPS and Seismic Stations in Antarctica

This project develops power and communications systems to support the operation of seismometers and GPS receivers in Antarctica throughout the polar night. In terms of intellectual merit, this system would allow a new class of geophysical questions to be approached, in areas as varied as ice sheet movement, plate tectonics, and deep earth structure. In terms of broader impacts, this project represents research infrastructure of potential use to many scientific disciplines. In addition, the results will improve society's understanding of the Antarctic ice sheet and its behavior in response to global warming.